High Pressure X-Ray Facility at National Synchrotron Light Source

0004084
Mao

This award provides funding support for the development and maintenance of the High-Pressure X-Ray Facility (HPXF). The HPXF maintains two branches of superconducting wiggler beamline X17 at the National Synchrotron Light Source located at Brookhaven National Laboratory. The beamline offers high brilliance X-radiation for use mainly by the high-pressure mineral physics research community. The HPXF facility also maintains supporting high-pressure equipment and provides technical assistance for visitors using the synchrotron radiation. Scientific research applications by users include studies of earth and planetary materials properties (for example, equations of state, elasticity, rheology, and phase relations) at high pressures and temperatures representative of conditions in the earth's deep interior.

***